NSF Project Showcase

The American Society for Engineering Education (ASEE) administers, for the National Science Foundation (NSF), the NSF Project Showcase. NSF Project Showcase is an exhibition of products and findings resulting from projects sponsored by NSF s Division of Undergraduate Education. NSF Project Show- case takes place at the 1995 ASEE Annual Conference and Exposition in Anaheim, California, on June 25-28, 1995. The NSF Project Showcase con- sists of 20 booths in the exposition hall and will be set apart from the rest of the exhibits. The exhibit showcases 20 project, on two successive days, for a total of 40 projects. Each Principal Investigator will have their own exhibit booth and will display the results of their NSF spon- sored projects to the attendees of the conference.